14th Texas Symposium on Relativistic Astrophysics; December 11-16, 1988; Dallas, Texas

The 14th Symposium on Relativistic Astrophysics will be held in Dallas, Texas December 11 -16, 1988. The Texas Symposia are celebrating their 25th Anniversary since the first Texas Symposium on Relativistic Astrophysics was held in 1963 in Dallas. The Texas Symposia take place every other year and serve as international summary of recent developments in the main areas of astrophysics and relativity. The biannual meetings are held in different cities in the U.S., and every third meeting is held in a foreign country such as the meetings in Munich, Germany in 1978, land in Jerusalem, Israel in 1984. The first presentations on the discovery of quasars were made at the first Texas Symposium on Relativistic Astrophysics. The identification of pulsars as neutron stars, the first candidates for black holes, the indirect evidence for the existence of gravitational waves, millisecond pulsars, and other rather important discoveries were first presented at the Texas Symposia. In addition to this, X-ray astronomy, the interaction of particle physics and cosmology, big bang theories and the early universe, galaxy formation, active galactic nuclei, supernovae and compact objects, cosmic rays and recent problems of general relativity were extensively covered at the Texas Symposia. The 1988 Texas Symposium will have mainly invited review talks which give a comprehensive overview of the major developments in the forefront of astrophysics, cosmology related topics of particle physics and space sciences, as well as relativity theory.